Quasiperiodic Systems

A theoretical study of quasiperiodic systems will be carried out by the principal investigators who plan to investigate electronic, vibrational and other physical properties of quasicrystals (one-, two-, and three-dimensional); quasiperiodic semiconductor superlattices; spin dynamics in quasiperiodic fields; electrons on two dimensional lattices with a magnetic field; and superconducting networks and Josephson junction arrays built in a quasiperiodic manner. They will try to elucidate novel and interesting phenomena induced by the quasiperiodicity and the topological structure of the problem. This project should simulate experimental activity. In turn, as important experimental progress is made, they will try to get a better understanding of the quasiperiodic systems, as well as to develop a phenomenological approach which may be directly useful for the planning of experiments.